CRCD: Constructive, Inquiry-Based, Multimedia Learning in Computer Science Education

0087977
Blank, Glenn D.
Lehigh University

CRCD: Development of a Web-based Integrated Learning Environment for Manufacturing Engineering Education

This project combines research in inquiry-based learning with emerging concepts in textual content identification and classification to the development of a multimedia learning system. The project applies a multimedia framework to the teaching of introductory and upper-level computer science courses for students with diverse learning styles, gender, and cultural backgrounds. In particular, the project concentrates on one introductory computer science course and two upper-level undergraduate/introductory graduate level courses, Object-Oriented Software Engineering and Artificial Intelligence with Applications in Textual Data Mining. Applying current research in data mining algorithms and knowledge base creation, a reference-librarian avatar guides learners through course content using a multimedia interface that seamlessly connects learners, networks, knowledge repositories and human instructors.